International Symposium on Brain-Gut Interaction Queen's College, Cambridge, U.K., July 7-10, 1992

This action is provide travel fellowships to young American scientists to attend the 2nd International Symposium on Brain-Gut Interactions to be held in Cambridge England. State-of-the-art lectures will be held on: (1) neuroanatomical basis of brain-gut interactions; (2) neuroendocrine modulation of afferent and efferent pathways; (3) sensory-motor interactions occurring in the enteric nervous system; and (4) interplay between the neural and immune systems. These are fundamentally important questions in an field that is rapidly advancing and changing. This symposium offers a forum for interactions of some of the most brilliant investigators with young scientists from all over the world. The sharing of ideas on this subject may lead to new experimental approaches which could be used to elucidate underlying basic mechanisms which, in turn, could provide a better understanding of gastrointestinal malfunctions. A reference book will be published of the proceedings to provide an integrated review on the neuroanatomy, neuropharmacology, neurophysiology and pathophysiology of brain-gut interactions.